Collaborative Research: Non-Linear Population Dynamics: Mathematical Models, Biological Experiments and Data Analysis

Dennis
9981458
Understanding the fluctuations in animal numbers is a
central issue in population biology that has far-reaching impact
on and implications for problems ranging from food production to
the conservation of species. Nonlinear dynamics opens the way to
a new phase of population research in which theory and
experimentation focus on phenomena such as cycles and
quasi-periodicity, chaos and strange attractors, multiple
attractors and complicated basins of attraction, saddle sets and
their stable manifolds, and so on. This interdisciplinary
project, in which Robert Costantino, Jim Cushing, Brian Dennis,
Robert Desharnais, and Shandelle Henson collaborate, covers a
spectrum of activities essential to testing nonlinear population
theory: the translation of the biology into the language of
mathematics and back again, the analysis of deterministic and
stochastic models, the development and application of statistical
techniques for the analysis of data, and the design and
implementation of biological experiments. A series of experiments
with flour beetles of the genus Tribolium provide rigorous
experimental tests of nonlinear phenomena. Topics include
nonlinearity in the context of stochasticity, chaos and
population control, the impact of periodic environments on animal
abundance, demographic dynamics and natural selection,
nonequilibrium species interactions, and statistical questions
concerning parameterization and validation of models.
With a sound understanding of the underlying dynamics of
animal populations, ecologists can anticipate the consequences of
environmental degradation and learn better ways to manage natural
populations and control populations of pests. For example, one of
the experiments suggests that, by taking advantage of the
"sensitivity to initial conditions" that is the hallmark of a
chaotic system, managers can dramatically decrease pest
population numbers without the use of chemical pesticides by
making small perturbations at critical times. The marriage of
ecological theory and experiments by the interdisciplinary
research team leads to new techniques for the application of
mathematics to ecological problems. The project is supported by
the Applied Mathematics, Computational Mathematics, and
Statistics programs in MPS and the Population Biology and Ecology
programs in BIO.